Collaborative Research: Next generation physiology: a systems-level understanding of microbes driving carbon cycling in marine sediments

It is currently impossible to grow the vast majority (>99%) of deep-sea microbes under laboratory conditions. Because of this recalcitrancy of most microbes to cultivation, linking specific genotypes with their in situ phenotypes has been a problem in microbiology for decades - it has been very difficult to figure out which members of microbial communities are doing what, due to the complexity of these communities. The new techniques used in these studies allow for a relatively straightforward labeling of the microbial cells that are active under different conditions, allowing for these "next generation physiology" techniques to be used to identify the individual cells actively consuming different compounds. In this technique metabolically active cells are labeled with aa compounds with the detection of these cells by fluorescence staining. This allows for the metabolism of hundreds of taxa to be followed under dozens of different conditions in parallel. These studies will focus on the hydrothermally active sediments of Guaymas Basin in the Gulf of California. There, a broad range of phylum-level lineages of uncultured archaea and bacteria are hypothesized to engage in the degradation of complex organic molecules, including hydrocarbons. The microbes that assimilate and break down these molecules will be identified, and their metabolism will be correlated with their genomes, allowing for an understanding of how these microbes are able to live on a diet of hydrocarbons, and helping us to further understand how these compounds break down in the environment. The investigators make use of topical blogs, public talks and magazine articles to educate and inform the general public on the importance of microbes in creating the world around us, and their laboratories will provide undergraduate researchers with exciting research opportunities.

The aim of this project is to investigate physiological controls of microbial carbon cycling in marine sediments and to link specific genotypes with their in situ phenotype. The investigators recently developed a new, highly parallelizable, and adaptable approach that allows for the studying microbial function and metabolic interactions in uncultured microbes at unrivaled throughput. To achieve this goal they combine the (1) labeling of translationally active cells via bioorthogonal non-canonical amino acid tagging (BONCAT), (2) sorting of individual, active cells by fluorescence activated cell sorting, and (3) study of the identity and genetic makeup of active cells by massive parallel gene sequencing. This results in a readout of the translational activity of hundreds of uncultured taxa in parallel, which allows for the functional activity of hundreds of taxa under dozens of different conditions to be determined. Guaymas Basin sediments were chosen for these studies due to their steep gradients in temperature, variety of electron donor identity and availability, and the presence of hydrocarbon seeps supplying aliphatic and aromatic hydrocarbons to the system. This means that these sediments are likely to have highly diverse metabolic potential, and their study will allow for a deeper understanding of carbon-cycling and other geochemical processes in marine sediments. The researchers will identify those microbes in environmental samples that are involved in hydrocarbon, complex substrate and heterotrophic/autotrophic activity, and follow this with targeted whole genome shotgun sequencing to directly identify the microbes actively utilizing those lifestyles, and provide the genetic makeup of cells that are able to exploit specific substrates. This work will provide a benchmark study for the developing field of deep-sea sediment microbiology and lay the foundation for future physiological studies in environmental microbiology.